Distributed Shared Memory Performance

The goal of this project is to provide meaningful research experiences to 8 undergraduate students selected largely from the Tulane University student body. Two faculty members will work with the 8 undergraduate students during the summer of 1990. The team will focus on the distributed shared memory performance area. It will select representative applications suitable to assess shared memory performance, assess what variables affect an application's performance using analytical modeling, validate the analytical model by measuring actual performance and determine how to tune applications for improved performance.